Interplay Between Strike-Slip Faulting and Contractile Tectonics: The Oblique Cascadia Convergent Margin

This study will determine the role of oblique subduction along the Cascadia convergent margin. Role of small block rotation, assessment of displacement rates and causes if faults and folds will also be determined. SeaMarc survey is planned. This data will be integrated with geophysical data to test rotation models.